"Micro-Computer Interfaced Equipment for Instructional Lab- oratories in a Community College"

The microcomputer hardware and software provided through this project are adding versatility to existing laboratory equipment and providing a new dimension to the science curriculum. It allows for the interfacing of microcomputers and transducers with existing hardware so that these two-year college students can perform laboratory experiments with greater rapidity, thus gaining more time for the interpretation of data, for better data analysis and for critical evaluation of the experimental designs and scientific methods being employed. Students are able to pursue independent problems and projects closer to the true nature of work done in professional scientific laboratories. The video camera supplements students' individual use of lab microscopes, enabling the instructor to illustrate important microscopic concepts by projecting permanent or wet-mount slides so that they may be examined and discussed by all students at the same time. Life activities of microorganisms also can be observed simultaneously in the group setting. All the new equipment provides students with greater opportunities to experience inquiry-centered instruction, thus helping them to build critical thinking skills. The grantee institution is matching the NSF award with an equal sum obtained from non-Federal sources.